Enhancement of Research at Prairie View A&M University

This project is designed to address computing needs of researchers and students in chemistry, physics, and biology as well as to provide facilities for studies in interfacial phenomena and surface characterization. Four minority graduate students and the project director will participate in this project to enhance research at Prairie View A&M University.